Acquisition of a High-Resolution Sector ICP-MS for Paleoceanographic Research

This award will support the purchase of a state-of-the-art Inductively Coupled Plasma mass spectrometer for paleoceanographic research.